RIA: Non-Orthogonal Multiaccess Signalling Schemes

This research is a study of non-orthogonal multiaccess signalling schemes, a generalization of the conventional orthogonal approach, in bandlimited and/or fading channels. These signalling schemes are studied from the information theoretical viewpoint and the work seeks the capacity regions , the ultimate performance limit, of channels using these signalling strategies. Moreover, the study will address the issue of designing signature waveforms to achieve these performance limits, and attempts to establish relationships between signature waveform design and multiuser coding theory. Following fruitful analysis in the code-division multiaccess (CDMA) channel, a special case of non-orthogonal signalling schemes, the project suggests the extension of the work to include the general model. It is hoped to develop a unified theory in multiaccess signalling that includes conventional signalling strategies as well as the recently developed CDMA scheme. This approach will broaden understanding in multiuser communications and lead to innovative designs in multiuser signalling. Practically, the outcomes of this project are likely to play an important role in mobile communications where bandwidth efficient multiaccess signalling strategies are crucial for development.